Twenty-fifth Midwest Probability Colloquium

0210995
Pinsky
The 25th Midwest Probability Colloquium will be held at Northwestern University, on October 17-18, 2003. This is a regional meeting with a limited number of talks and plenty of opportunity for interaction among the researchers. It has a strong tradition of encouraging graduate students and other young investigators to attend and interact with specialists. This year's speakers are Gerard BenArous, Bruce Driver, and Jonathan Mattingly.